Project ATMOSPHERE: Weather Sensing, Analyzing, and Forecasting Summer Workshops for Teachers

This grant provides partial support for an annual, two-week workshop held in Kansas City, Missouri, which introduces precollege teachers to fundamentals of weather observing, analysis, and forecasting, and equips them with modern instructional material for use in their own courses and in peer-training sessions at their home institutions. These workshops have been held for the past decade by the American Meteorological Society in collaboration with the National Weather Service. Typically, about 25 teachers participate, drawn from all parts of the United States. The objective is to improve the effectiveness of teachers in generating interest and understanding of science, technology, and mathematics among precollege students. The program is designed to promote working relations between teachers and scientists and to encourage the use in K-12 classrooms of recent research findings and the Web-delivered world meteorological data stream. This award supports the program for the five-year period beginning in 2002.